Building GLOBE Learning Communities

9802022 McWilliams In this project, TERC, Inc. of Cambridge is addressing two strands for the interagency GLOBE program. The first is to focus on the Teachers Guide that is being produced on an annual basis. This guide is updated and revised and enhances the interweaving of the science protocols and learning activities, increases the use of visuals and includes a cross-referenced index for the GLOBE teachers. In addition, TERC is helping the GLOBE scientist/educator teams design learning activities that are inquiry-based and make use of the GLOBE student data and visualizations. The materials are also to be in web and CD-ROM versions. A second strand is developing and implementing new resources to help GLOBE improve its overall educational goals. Resources include district-wide implementation guides, Web-based Netcourses, a GLOBE student research Journal, an activities Development Guidebook and a format for On-line communities of GLOBE teachers.